Control of Genome Structure

The purpose of the proposed research is to characterize a novel genetic process in Neurospora crassa referred to by the acronym as "RIPing" (rearrangement induced premeiotically). Our preliminary work suggests that RIPing is responsible for rearranging certain duplicated DNA sequences at high frequency. The process also typically leads to methylation of the affected sequences, de novo. We will: (1) test the hypothesis that RIPing is triggered by sequence duplications; (2) determine the nature of the induced alterations; (3) explore why some sequences appear resistant to the process; (4) attempt to isolate mutants defective in RIPing: and (5) investigate whether RIPing is responsible for a class of spontaneous mutations. Characterization of this process may illuminate unrecognized genetic mechanisms, and at the same time should provide information of practical use to scientists making modifications to the genome. RIPing is almost certainly responsible for instability of transforming DNA in N. crassa, and it seems possible that a process analogous to RIPing is responsible for DNA rearrangements observed in other systems, such as in transgenic mice. It is likely that an understanding of RIPing will also give us insights into why the genome is organized the way it is.